The Semiclassical Limit and Geometric Quantization

Abstract

Award: DMS-0805878
Principal Investigator: Alejandro Uribe

The principal investigator will study aspects of the relationship
between the semiclassical behavior (i.e. as Planck's constant
tends to zero) of quantum-mechanical objects with their geometric
counterpart in phase space. More specifically, problems to be
investigated include: Direct and inverse spectral problems for
Schrodinger operators in various semi-classical settings,
rigorous analyses of semiclassical approximations commonly used
in the physics and quantum chemistry communities (Bohr-Sommerfeld
conditions, approximate propagators and computation of
correlation functions), as well as quantum-mechanical analogies
of constructions in symplectic geometry (like symplectic
cutting). The settings will be both classical (when the phase
space is Euclidean) and more geometric (e.g. when the phase space
is a compact Kahler manifold or the cotangent bundle of a
configuration space).

The relationship between mathematics and physics is profoundly
important for both the theory and applications of these subjects.
In one direction, mathematics is the language of physics and its
methods can have powerful applications; in the other, physical
problems often give rise to new mathematical problems that can be
extremely fruitful. The proposed research will study problems at
the interface between quantum mechanics and geometry. The
problems are generally of two kinds: spectral, meaning related to
the energy of a quantum system, and dynamical, comparing the
evolution of a quantum system with its classical counterpart.
The spectral problems seek to understand the relationship between
the possible energy levels of a quantum system and the geometry
of the corresponding classical system. The dynamic problems
should result in a better understanding of the underpinnings of
some popular computational methods in quantum chemistry.